Learning Science through Guided Discovery: Liquid Water & Molecular Networks

In every drop of water, down at the scale of atoms and molecules, there is a world that can fascinate even young, non-verbal science students and ardent science-phobes. The objective will be to learn science through guided discovery. Students will study liquid water and molecular networks using advanced technology to provide windows into submicroscopic worlds, first of water and later of macromolecules such as proteins and DNA. The study of water is interdisciplinary, spanning the disciplines of biology, chemistry, and physics. Students will study questions that cut across these disciplines as well as those internal to each field. A new generation of desktop computers now permits us to leapfrog directly from the large-scale properties of water that we experience every day to "real time" dynamic motions in the submicroscopic world. This permits students to learn according to a new paradigm: doing science while exploring and manipulating structures using student-controlled, animated graphic, simulations on the molecular scale, rather than being told about science and given tests on structures. The project will actively develop this new paradigm and probe student understanding and seek to determine if students can apply their insights and developed intuition to predict the properties of a wealth of alternative materials easily and rapidly modeled by the computer.